Genetic and Cell Biologic Studies of Mechanism of mRNA Exit from the Nucleus

The goal of this research is to obtain temperature sensitive yeast mutants in which mRNA exit from the nucleus is blocked at the restrictive temperature. After mutagenesis of selected yeast strains, mutants will be selected through a series of screening procedures designed to eliminate those which are simply temperature sensitive for protein synthesis or amino acid uptake, and to identify those which continue to synthesize mRNA but do not allow it to exit the nucleus at the non-permissive temperature. Although transport of molecules into and out of the cell nucleus is critical for the life of a cell, the mechanisms regulating such transport are not understood. Furthermore, despite the central importance of messenger-RNA exit for all eukaryotic cells, a genetic approach to this fundamental problem of cell function has not previously been taken. Success in obtaining temperature sensitive messenger-RNA exit mutants would therefore provide important new tools that would permit analysis of the molecular basis of this process.